Generation of Coherent Vacuum Ultraviolet Radiation

For this research, two- photon resonances will be used in xenon, krypton, and argon to achieve tunable outputs by mixing with visible dye laser radiation or near infrared radiation obtained by stimulated Raman scattering. A Fizlau wavemeter with an accuracy of one part in ten will be completed andcharacterized. Measurements of scattering from rare gas Rydberg states will be compared. Also, the current coherent extreme ultraviolet source will be used in four-wave mixing as a basis for very high resolution optical studies. Experiments are planned to simplify the system for extending the outputs to shorter wave lengths.